Proposal Processing and Data Entry Support for the International Digital Libraries Collaborative Research Initiative

This award is to provide proposal processing and data entry support for the International Digital Libraries Collaborative Research Initiative